Presidential Young Investigator Award

This grant supports continuation of work on the molecular biology of a molecular "switch" that causes alternate expression of the flagellin genes of the bacterium Salmonella typhimurium. Both genetic and biochemical approaches will be taken on defining the roles of protein-protein interactions in the enhancer stimulated recombination reaction that inverts a critical piece of DNA on the bacterial genome. In addition to these studies, new work will be started on another antigenic variation system in bacteria, that of the bacterium Mycoplasma hyorhinis. This bacterium exhibits antigenic variation of its lipid-modified surface proteins. The complex patterns of alteration in antigenic nature and size of the surface proteins suggest a very interesting and perhaps novel mechanisms of control. A plasmid or transposon system for mutational studies will be developed in order to facilitate studies in Mycoplasma, organisms with the smallest known genomes of any living organisms.